A Coordinated Set of Tools for Implementing Large Programs on MIMD Message-Passing Multicomputers

9301788 Berman We propose to design and develop a tool for visualizing, displaying and optimizing the data and function partitioning of large programs coded in parallel languages with explicit decomposition constructs. This tool will assist in ensuring that the decomposition of processes and data will promote the most efficient use of parallelism for a given program and target multicomputer. Coordinated with this tool will be a parallel debugger (Panorama), which is built on the resident debugger of a commercial multicomputer, and which will provide a number of program views that will illuminate data movement and message traffic from the program execution.